STTR Phase I: Development of a Process to Extend the Shelf Life of Fruits and Vegetables at Ambient Temperature

The broader impact/commercial potential of this STTR Phase I project is a sustainable fruit and vegetable processing technology utilizing a new, low temperature technique that can extend the shelf life of pre-cut fruits and vegetables by months without using preservatives, chemicals, freezing, or refrigeration. The technology would enable: all-natural, shelf stable fruit and vegetable products that retain maximum nutritional value, texture, and taste. With significant percentages of the total US national energy budget used for food-related energy, and high fresh produce loss in the developed countries due to insufficient refrigeration, achieving shelf life extension without cold storage or preservatives could drastically reduce energy costs, increase efficiency, and expand access to nutrition globally.

This STTR Phase I project proposes to develop, validate, and build-upon initial research to evaluate the feasibility and scope of a novel food processing technology. Traditional processing methodologies have fundamental drawbacks. High temperature treatments degrade nutritional quality while altering texture and taste of end-products. Freezing negatively affects the reconstitution properties of fruits and vegetables, and requires high energy consumption throughout the food system to maintain the cold chain. HPP (high pressure processing) has limitations on the enzymes it can inactivate, and chemical alterations from high pressure treatment negatively affects texture and taste. This research proposal will use validation studies to evaluate the feasibility and applicability of the novel processing technique to a variety of fruits and vegetables. Successful experimentation will prove that the application of dense phase gas at low temperatures can overcome the aforementioned drawbacks, achieving enzymatic inactivation, destruction of the spores, improved reconstitution properties, lower energy requirements, and minimal deterioration of taste, texture, and nutritional quality. Such a result would actuate follow-on development work to validate that, at commercial scale, the new process technology improves upon the operational costs of traditional methodologies.